RUI: Connection to Southeastern Universities Research Association Network

9317451 Yeo Mount St. Mary's College requests support from NSF for connection of their campus networks to SURAnet. SURAnet is the midlevel network located in the southeastern United States. It will provide operations management and information services and it will give Mount St. Mary's College a 56 thousand bits per second connection to the NSFNET, a high speed (1.5 - 45 million bits per second) National Backbone network. Students and faculty research will benefit from the link. By linking to the mid-level and national networks, Mount St. Mary's faculty and academics will maintain a position of leadership in research and educational innovation by profiting from remote access to super computer centers, data bases and information services, high speed communications, file transfer and remote login, and access to library resources. This is also a unique opportunity for the school to explore innovative educational resources.